A Workshop: To Develop a Scientific Plan for an Initiative on Recruitment Processes and Ecosystem Structure

A workshop will be convened to develop a scientific plan for an initiative on recruitment processes and ecosystem structure. The plan would: describe the major scientific issues to be addressed; identify research strategies for addressing these issues, especially interdisciplinary issues involving population dynamics, ecology, and biological, chemical and physical oceanography; specify conceptual, technological and implementation problems that might impede attainment of research goals; and identify opportunities for interinstitutional and international collboration. The workshop will be held in April 1988 in Washington, D.C., at the Joint Oceanographic Institutions, Incorporated, which will handle the arrangements for the workshop. An organizing committee and a series of working groups will be set up to plan and organize the workshop. Invitations to the workshop will be issued by the organizing committee to approximately 100 prospective participants. A full report of the workshop, including the conclusions reached and the working papers, will be published by late 1988.